Study of the Proton Structure with Electron Beams

Decades of research have provided major insights into the proton’s structure and the dynamics of quarks and gluons. However, fundamental questions remain regarding the origin of proton spin, quark confinement, and the emergence of visible mass. Addressing these challenges is essential for a complete understanding of Quantum Chromodynamics (QCD). This award supports the PI and Duquesne undergraduate students in a comprehensive research program focused on probing the proton’s partonic structure through polarized deep-inelastic scattering measurements at Jefferson Lab. The project will investigate hadron formation and the role of strange quarks in the nucleon using charged kaon and pion production from hydrogen and deuterium targets. A major focus of this project is the advancement of particle-identification techniques for the CLAS12 detector in HallB. The Duquesne group will lead software development for the CLAS12 Ring Imaging Cherenkov (RICH) detectors and pioneer the application of state-of-the-art machine learning techniques to enhance particle identification, reconstruction accuracy, and physics sensitivity. Through direct participation in this forefront international nuclear physics experiment, undergraduate students will gain hands-on experience in experimental physics, artificial intelligence, advanced detector technologies, and large-scale data analysis, developing highly transferable skills that prepare them for competitive graduate programs and careers in high-demand STEM and data-driven fields.